Collaborative Research: Development of middleware/software to allow visualization and analysis of large and complex 4-D geoscience datasets

0446729
Erlebacher

Funding from this grant will support development of a collection of computational, analysis and visualization web services that interact with user clients using an intelligent middleware fabric based on the publish/subscribe paradigm. Java Applets and PhP-based interfaces will serve as front end graphical user interfaces. The developed system, WEB-IS, will facilitate collaborative scientific visualization, wavelet and statistical analysis of massive geoscience sets. Examples of large data set generating technologies and techniques applied in Earth science research include synthetic aperture radar (SAR) and interferometric analysis (InSAR), multispectral remote sensing, light detection and ranging (LIDAR), global and regional continuously operated seismic and GPS networks, very high resolution petrographic studies using field emission electron microscopy, and large-scale 3-D numerical simulations in geodynamics. Undergraduate and graduate students will gain practical experience in the art of developing frameworks and have the opportunity use them in geophysical applications through direct association with the PIs.
***